Two Themes in Approximation Algorithms: Use of the Primal- Dual Schema, and Problems in Network Design

This projects explores problems in the area of approximation algorithms, with emphasis on two themes: (1) Primal-dual schema based on approximation algorithms; and (2) Approximation algorithms for problems in network design. First, several problems are investigated that appear to have ``optimal'' approximate solutions using primal-dual schema, including generalized Steiner network problem, integral multicommodity flow and multicut in trees, the set cover problem, and the k-minimal Steiner tree problem. The second goal of the project is to provide ``good'' approximate solutions to problems, identified by AT&T Bell Labs and Bellcore, in the area of implementation and maintenance of low-cost broadband networks.***